RUI: Algebraic and Enumerative Combinatorics

Curtis Greene and Lynne Butler will continue their research into problems in algebraic and enumerative combinatorics, with special emphasis on the role of discrete structures such as posets, lattices, and tableaux in the representation theory of classical groups and corresponding problems for symmetric functions. Greene will focus on the combinatorics and representation theory underlying certain families of symmetric functions which have non-commutative analogues. Butler will continue her work on Hall polynomials, investigate the order analogues of face lattices of some regular polytopes, and study combinatorial properties of Macdonald's two-variable Kostka functions. This research is in the general area of Combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be arranged. The behavior of discrete systems is extremely important to modern communications. For example, the design of large networks, such as thus occurring in telephone systems, and the design of algorithms in computer science deal with discrete sets of objects, and this makes use of combinatorial research.